Signaling Pathways in Postsynaptic Differentiation

0080843
Gordon

The functioning of the nervous system depends on an intricate
network of connections between cells. Much of the communication
occurs at tiny physical contacts between cells called synapses. How
molecular components of synapses come to be organized together is an
important problem within neuroscience. The current project will
examine how influences from motor neurons direct the localization of
synaptic molecules on muscle cells. It is hypothesized that calcium
channels on the muscle cells mediate the signaling from the neurons
and that local entry of calcium through these channels directs the
local accumulation of synaptic molecules. In order to test this
hypothesis, muscle cells in tissue culture will be stimulated with
signaling molecules derived from neurons, and the calcium channels
will be manipulated with pharmacological agents. Both local calcium
entry and the local accumulation of synaptic molecules will be
assayed.
The results of the proposed work will further our understanding of
the molecular signaling mechanisms that control the formation,
maintenance, and modulation of synapses. Synapses provide the
nervous system with something akin to what transistors provide
computers, pathways of communication that can be modulated to obtain
different results. As such, an understanding of how synapses can be
modulated has profound implications for learning and memory.